Micronesian Archaeology Conference; University of Guam; September 10-12, 1987

This grant provides partial support for a conference on Micronesian archaeology which will take place at the University of Guam in September 1987. Approximately 50 non-local scholars will participate and the audience will include an equal number of individuals attending the Indo-Pacific Prehistory Association Congress which will be held in conjunction with this conference. The major objective of the conference is to bring together for the first time a diverse group of researchers who have conducted archaeological fieldwork in Micronesia during the past 10-15 years. Seven sessions are planned: five cover theoretical and methodological topics. One will present new findings in Micronesian physical anthropology and one will address historic preservation issues. A number of community-oriented presentations and events such as public lectures will also take place. While synthetic work has been done in other areas of the Pacific, in the Micronesian region such an overview is lacking. Excavations have been conducted on a project by project basis and many of the results remain unpublished. Because researchers come from different continents, face to face interaction is rare. this conference will allow excavators to present results from Their work and hopefuly lay the basis for a broad synthetic overview. Much of the Micronesian archaeology has been supported by U.S. government agencies. Such site by site work only gains its full value when fit together into a broader context. This confernence will help to accomplish this goal.